Mathematical Modeling of MEMS Devices

This award supports a coherent research program of modeling, analysis and
numerical simulation of microelectromechanical systems (MEMS). The mathematical
investigation of such devices forces the researcher to understand the behavior
and coupling of fluid, electromagnetic, thermal and mechanical forces on the
micron length scale. The focus of this project is the coupling of electrostatic
and mechanical forces in MEMS devices. Due to their favorable scaling with device
size, electrostatic forces are often used to actuate mechanical members of such
devices. The mathematical modeling of this effect requires an understanding of
coupled nonlinear elliptic systems of partial differential equations.
The system consists of the equations of electrostatics coupled to the
Navier equations of elasticity. Generally, the equations are coupled in two ways.
First, the electrostatic potential appears as a source of mechanical force in the
Navier equations. Second, the boundaries of the domain for the electrostatic
problem depend upon mechanical deflections and hence the solution to the
Navier equations. This two way nonlinear coupling is often additionally
complicated by the appearance of nonlocal terms when the device is embedded
in a circuit. In this work, a sequence of mathematical models of such devices
will be designed to explain phenomena associated with MEMS devices, improve
existing or suggest new numerical simulation methods and ultimately
aid in the design of existing and future MEMS devices.

The field of microelectromechanical systems has undergone a startling revolution
in recent years. It is now possible to produce functioning motors
that can only be seen with the aid of a microscope, gears smaller than a
grain of pollen, and needles so tiny they can deliver an injection without
stimulating nerve cells. The use of existing integrated circuit technology
in the design and production of MEMS devices allows these devices to be
batch processed, hence made in quantity, inexpensively. This in turn is
igniting a revolution in areas such as biotechnology, where devices that
once could only be dreamed about have suddenly been made possible.
In order to realize the full potential of MEMS, a theoretical understanding
of their function is necessary. This requires the construction and analysis
of mathematical models of such devices. Of particular interest are devices which
utilize electrostatic forces to provide locomotion. This class of devices will
be modeled and analyzed in this project. This analysis will yield insight into
the operation and future design of MEMS devices. Further, by developing an understanding
of electrostatically actuated MEMS on a fundamental level, the research will suggest
techniques for efficient numerical simulation of more complicated structures.